Partial Support of the Plasma Science Committee

This program supports the activities of the Plasma Science Committee of the National Research Council. This committee is the standing committee of the NRC charged with monitoring the health of the field of plasma science in the United States. It does this through regular meetings, panels, and workshops, with participation by active researchers in the plasma science community. It disseminates the results of its deliberations through reports and through direct conversations with community members and with representatives of funding agencies.